Research Initiation: Effects of Microscopic Environment on the Morphology of Growing Clusters

This research involves computer modeling of the patterns of aggregates formed when individual small particles become attached to a seed particle or to a preexisting aggregate. It will explore the regime where the rate of transport by Brownian diffusion to the aggregate and the rate of attachment are of comparable magnitude. Simulations regarding the particles as discrete objects and simulation regarding particles continuously distributed will be developed. Aggregate morphology can greatly influence the characteristics of particle agglomerates including their optical, rheological, and packing properties. This research should help relate agglomerate morphology to the transport and growth kinetics.